An Integrated Approach to the Functional Mechanics of Productide Brachiopods

9901482
Leighton

The potentially large gapes of productides, and of brachiopods with deltidiodont dentition in general, also are of interest because many of these brachiopods may have had a fundamentally different type of lophophore (the ciliated feeding organ of a brachiopod) than the lophophores of cyrtomatodont brachiopods. As the lophophore is soft tissue, and calcified lophophore supports are not always present, the nature of the lophophore in fossil brachiopods is often conjectural. However, there is growing body of evidence that many strophmenides, chonetidines, and productides had ptycholophous (lobate lophophores oriented in a single horizontal plane) lophophores. In contrast, most brachiopods with cyrtomatodont dentition have some type of coiled lophophore. Ptycholophous brachiopods may feed better with larger gape angles, and the evolution of characters facilitating such angles and maximum opening moments that sustain gape may have been an evolutionary breakthrough. The ability to gape wider may have made productides more effective competitors with other suspension-feeding organisms, and favorably influenced their rapid diversification. This study will test that hypothesis.